Quantum 1/f Noise and Limitations of All-Optical 2-D Spectral-Holographic TDM Technology with Quantum Well Devices

Proposal Number: ECS-9727210

Principal Investigator: Peter H. Handel (U. of Missouri St. Louis)

Title: Quantum 1/f Noise and Limitations of All-Optical 2-D Spectral-Holographic TDM Technology with Quantum Well Devices

Abstract

This proposal is to refine and simplify the quantum 1/f noise theory developed previously for applications to HFETs and FETs, and to further develop the connection between the coherent and conventional quantum 1/f effects in microstructures and devices. This is a revised version from the original proposal with the "Limitation of All-Optical 2-D Spectral-Holographic TDM" portion deleted for a limited funding.